A Workshop Proposal: High Performance International Internet Services (HPIIS)

The principle objective of this workshop is to bring together experts from both domestic advanced networks and HPIIS to develop metrics. These metrics will be used to quantify the use of HPIIS network links, to classify research use of these advanced networks and to collect success stories for each classification. A future objective will be the reporting of the numbers of published papers and people trained over time.